Research Experiences for Undergraduates in Chemistry at Louisiana State University

This Chemistry Division award provides continued support for a Research Experiences for Undergraduates (REU) site in the Chemistry Department, Louisiana State University (LSU). Drs. Robert P. Hammer and Robin L. McCarley will coordinate the 10-week summer program for the next three years. Ten students from institutions other than LSU will carry out research in all areas of chemistry. Activities will emphasize finding chemical information, written and oral communication, and presentation skills, as well as knowledge of research and career opportunities in the chemical sciences. A series of lectures and tours will be given by professional chemists drawn from industry, national laboratories and government agencies. During the last week of the program, participants will prepare a presentation for the joint poster session with students supported by other summer programs, including the Louisiana Alliance for Minority Participation and the Howard Hughes Biomedical Research Institute